Dissertation Research: Prehistoric Cultural Development and Highland-Lowland Rainforest Interaction in the Northeastern Andes of Peru

Under the direction of Dr. Richard Burger Mr. Warren Church will collect data for his doctoral dissertation. He will analyze archaeological materials excavated at the site of Cueva Manachaki which is located in the "cloud forest" region of Eastern Peru. This area lies at a middle altitude and separates the high open Andean grasslands from the low lying tropical Amazon rainforest. The site itself is a small rock shelter which contains finely stratified deposits which span the per-ceramic through ceramic periods. Excavation has yielded not only large quantities of ceramic and lithic materials but also well preserved organic remains. Mr Church and his colleagues will analyze these materials to accomplish three goals: 1. to determine the cultural sequence for this little known region; 2. to test the hypothesis of long-term cultural development and subsequent evaluation of the alternative migration hypotheses through analysis of continuity and change in the cultural sequence; and 3. to identify and interpret evidence for highland-lowland rainforest interaction. Peru is of great archaeological interest for several reasons. It saw the rise of a series of complex state level societies before arrival of the Spanish. The region is also characterized by strong vertical zonation where the steep rise of the Andes creates a number of distinct ecological zones in close proximity. Many models have been developed which link the development of complex societies to the need to coordinate the movement of subsistence goods across zones. While extensive excavations have provided excellent data bases for some regions, others including the cloud forest are little understood. Mr. Church hypothesizes that local adaption took place within this zone and that it served as more than a way station between highlands and lowlands. Analysis of materials from the unique site of Cueva Manachaki will allow him to evaluate this idea. This research is important for several reasons. It will provide data of interest to many archaeologists. It will increase our understanding of the processes which lead to the development of complex societies and will assist in the training of a promising young scientist.